NMR Structures of Peptides Bound to Large Proteins: Transferred-NOESY Test Beds

Dratz
MCB 9904009

Title: NMR Structures of Peptides Bound to Large Proteins: Transferred
NOESY Test Beds

1. Technical

The objectives of this study are to improve and validate
transferred-NOESY (Tr-NOESY) NMR methods to determine the 3D structures
and mobilities of peptides bound to large proteins and to determine
protein surface structures, using antibody imprints for cases where the
proteins of interest are available in small amounts or cannot be purified
for structural studies. The Tr-NOESY approach appears to be a rather
general method for studying the structures of protein-bound ligands if the
complexes are not excessively strong. However, the level of accuracy of
the structures obtainable from Tr-NOESY is not clear. Peptide-protein
complexes, whose structures are known (biotin-mimetic peptides bound to
streptavidin), and protein surfaces that are known from x-ray diffraction
(actin surface and peptide epitopes bound to anti-actin antibodies), are
used as test beds to assess Tr-NOESY methods. Improvements will
include: (1) Increasing the accuracy of protein-bound peptide structures
by removing interferences from protein-peptide cross relaxation and
increasing the number of distance constraints with improved resolution,
using (uniform biosynthetic) 13C and 15N labeling of peptides and
magnetization exchange network edited transferred-NOESY (MENE-Tr-NOESY).
(2) Assessing local motion in the bound peptides qualitatively by
measurement of transferred-NOESY as a function of the NMR frequency. (3)
Obtaining more accurate distance constraints, corrected for differences in
local motion of the bound peptides, using heteronuclear relaxation data.
(4) Employing 3D Tr-NOESY/Tr-NOESY and magnetization exchange network
edited MENE-Tr-NOESY/MENE-Tr-NOESY to obtain more numerous and accurate
constraints on protein-bound structures. These methods are expected to have the
capability to provide structures as accurately as high quality x-ray
diffraction analysis.

2. Non-technical

Biological signaling and specific adhesion are crucial for
regulation of cells and organisms and for guiding proper growth and
development of multicellular organisms. Such mechanisms are carried out
by coupling between proteins in webs of protein-protein interactions, that
provide amplification and control points. Revealing the structures of the
interacting proteins can tremendously enhance understanding of biological
mechanisms. However, most of the interacting proteins have not been
crystallized for structure determination by x-ray diffraction and are too
large for effective structure determination by nuclear magnetic resonance
(NMR). Protein-protein interactions that are responsible for biological
control mechanisms are reversible and typically occur using a small
fraction of the protein surfaces. Peptides which bind to one of the
intact proteins and block the protein-protein interactions of interest are
selected. The conformation of protein-bound peptides can be studied by
the transferred-NOESY (Tr-NOESY) NMR method, if the bioactive peptide is
in relatively fast exchange with the bounding site. The bound peptide
conformation reflects features of the structure of the interface between
the proteins of interest. The Tr-NOESY approach appears to be a rather
general method for studying the structures of interacting protein
interfaces, however, the level of accuracy of the structures obtainable
from Tr-NOESY is uncertain. Therefore, the objectives of this study
are to test systems with known structures to improve and validate
Tr-NOESY NMR methods to determine the 3D structures and mobilities of
peptides bound to proteins and to determine protein surface structures
using monoclonal antibody epitope imprints of the protein surface, for
cases where the proteins of interest are available in small amounts or
cannot be purified for structural studies.

Department of Chemistry and Biochemistry
Montana State University
Bozeman, MT 59717
Phone/Voice-mail: 406-994-4041
Fax: 406-994-5407
E-mail: [email]